Graduate Student Topology Conference

Abstract

Award: DMS-0555730
Principal Investigator: Kent E. Orr

The Graduate Student Topology Conference will provide graduate student
training and create opportunities via student talks, via communication
of recent advances, and by introducing students to others within their
field. We accomplish this with the participation of established
research leaders who will give plenary talks and interact with
students, and through graduate student talks. Vaughan Jones from UC
Berkeley and Dusa MacDuff from SUNY Stony Brook will give keynote
presentations. A winner of the 1990 Fields Medal, Jones is a member of
the National Academy of Sciences and the American Academy of Arts and
Sciences. After celebrated work in von Neumann algebras, Jones
established a new paradigm for knot theoretic research with his
breakthrough discovery of the Jones Polynomial. Dusa McDuff is a
member of the United States National Academy of Sciences, the American
Academy of Arts and Sciences, and is a fellow of the Royal Society of
London. She has numerous honors including the Satter Prize of the
American Mathematical Society in 1991. Graduate students will present
a range of topics from elementary introductions of fundamental topics
to ongoing research.

Topology is an abstracted form of geometry studying the aspects
of geometric objects which are unchanged through continuous
deformation. Of particular interest to geometric topology is the
classification of manifolds, that is, spaces which near each
point look Euclidean. One often solves a geometric topology
problem by relating it to other algebraic problems that are more
tractable. The algebraic tools so developed have substantial
independent interest within algebraic topology. Topology is a
central field of theoretical mathematics having broad
applications to physics and other sciences. The conference takes
place at the Bloomington, Indiana campus of Indiana University on
April 1 - 2, 2006, and will encourage essential communication and
collaboration among graduate students working in the area of
topology, and pertaining to their research initiatives.

The conference web page is http://www.indiana.edu/~gstc/.